Research: Characterizing Gendered Socialization of Early Career Civil Engineers to Promote Inclusive Practices and Retention of a Diverse Workforce

There is a pressing need to better understand the high rates of attrition from engineering careers, particularly within their first decade on the job. Therefore, this project will examine the organizational socialization of newcomer civil engineers and will focus specifically on how the socialization process is gendered in ways that contribute to attrition from the profession. It will build on a previous longitudinal study on the same topic and will continue the long-term work of developing processes of acculturation to the engineering profession that are compatible with intersecting non-normative identities by refining and expanding an empirically-supported and engineering-specific model of gendered socialization. The integrated education and research plan will yield a dramatic impact on the field of engineering education by prioritizing the importance of underutilized gender theories, enrolling men in gender research and systems change, and addressing the gap in research on engineering workplaces. Other than the original study that this project builds on, no existing research has systematically examined the gendered organizational socialization experiences of newcomer men and women engineers. Ultimately, this project will facilitate greater equity in the socialization of newcomer engineers in order to decrease attrition from engineering careers and broaden participation of underrepresented groups in engineering. Furthermore, this project will contribute simultaneously to the fields of engineering education, engineering studies, organizational studies, and gender studies, among others.

The objectives of this project will be to refine and expand a theoretical model of gendered socialization in civil engineering workplaces and to create research-based interventions for more inclusive socialization. The study will involve two groups of participants. Group 1 will be early career civil engineers from around the country who have been participating in a similar study since 2018. They work in engineering firms, as well as in governmental organizations at the federal, state, and county levels. When the project begins, they will be in the fifth and sixth years of their careers. For this group, mixed-methods data will be collected longitudinally for three years through bi-monthly Individual Socialization Logs (an instrument developed during the course of the previous project) and twice-yearly in-depth interviews. The survey and interviews will explore their experiences in the workplace, including their biggest challenges, the most important things they are learning, their most memorable interactions, and their relationships with co-workers. Findings will be used to refine and expand the model that was created based on the first few years of their careers. Group 2 will be former early career civil engineers who left the engineering profession for a non-engineering career. They will participate in a one-time interview that will explore the reasons they left engineering, thought processes and timelines leading to that decision, what they think about their decisions now, workplace experiences that could have made a difference, and ways university could have better prepared them. From this data, a typology of the reasons for leaving and organizational socialization factors that played a role will be created. That typology will then be compared to the existing theoretical model and survey instrument to determine what additions need to be made to both in light of the experiences of those who have left civil engineering. Project outcomes will include identification and characterization of facets of organizational socialization (e.g., practices, processes, relationships and social networks) that are gendered, including how they are gendered intersectionally. Research findings and the model based on them will be utilized to create professional formation materials for civil engineering professionals. The professional formation materials will be implemented nationally and locally.